Fine-Scale Crustal Structure of the Kane Fracture Zone

9313986 Tucholke Funds are provided for the PI to complete analysis of the SeaMarc II side scan, magnetic and echo sounding data collected from the Kane Fracture Zone from Paleogene crust. The cruise on which the data was collected was plagued with electrical and mechanical problems which necessitated a major reprocessing effort to recover useful interpretable data. This has now been largely accomplished and new funds will allow the completion of analysis and interpretation of the results to derive information about the fine scale crustal structure of the Kane Fracture Zone.